I-Corps: Translation potential of a compact power generation system based on rotating detonation combustion integrated with a turbine generator

This I-Corps project is based on the development of a compact power generation system for gas turbine engines. Currently, rapid growth in Artificial Intelligence (AI) and cloud computing is driving demand for reliable on-site power and threatens to impact all electricity consumers, both industrial and residential, with dramatically rising costs. Data Centers and others need reliable power now, yet large gas turbines are backlogged for much of the next decade. This technology, called rotating detonation, is a combustion concept emerging from the aerospace industry that promises to bring about an increase in efficiency for gas turbines, while also making such engines more compact and resilient. The goal is to provide ultra-efficient new turbine offerings and attractive retrofit and repowering options for existing plants in a rapidly growing market. By improving the performance of existing turbine engines, this technology may increase capacity in the near-term and provide abundant, clean, and affordable energy for everyone.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of new thermodynamic cycle for gas turbine engines. This technology is based on rotating detonation combustion and uses a supersonic combustion wave that constrains expansion of reactants during the heat addition phase. This results in an additional pressure increase and a larger usable thermodynamic potential compared to conventional systems. The system is designed to produce high power density in a compact package by combining detonation combustion with turbomachinery optimized for high-speed compressible flow. Initial studies have shown that system efficiency incorporating this new cycle could be increased by up to 10% relative to conventional gas turbines. Potential applications include mobile power systems, remote industrial operations, disaster response power, and backup generation for critical infrastructure. The compact architecture also may benefit data centers, military forward operating bases, and remote communities where transportation and installation of conventional generators can be challenging. By reducing system size and improving efficiency through pressure-gain combustion, the system aims to deliver dispatchable power with a lower logistical footprint. In addition, the technology may complement existing diesel and gas turbine generators in applications where mobility, modularity, and rapid deployment are important.